Mathematical Sciences: Saddlepoint Methods in Statistics

The first portion of this research is concerned with the computation of Bayesian predictive densities in settings where the predictive density does not have a tractable form. Such settings occur in stochastic network models where flowgraph methods can be used to derive their moment generating functions. Saddlepoint methods are then used to convert these generating functions into densities and cumulant generating functions. Subsequent mixing over the posterior distribution is accomplished with either simulation or the analytic method of Laplace. We also develop importance sampling methods for p-value computation in multivariate analysis. Virtually all the common tests in this subject area will be computable with the simulation schemes we shall develop and the run times should amount to less than five minutes on a work station. Additional work dealing with approximation of responses in non-linear stochastic systems is to be considered. Systems theory encompasses such things as the study of production management, where the flow of products along an assembly line is of interest, queuing theory, reliability of electrical networks, flow of traffic on a highway system, etc. The mathematical study of these systems when they are subject to randomness is based on an area of mathematics called transform theory. So far transform theory has not proven to be a particularly useful tool to the more practical engineer for extracting practical answers about systems. Engineers are mostly inclined to use very time-consuming computer simulations for this analysis. This research is concerned with applying new mathematical tools called saddlepoint approximations to these problems that will allow practical answers to be extracted from the transform theory. Where a random system might now take 10 hours of computer simulation to analyze, it should take only minutes on the computer to analyze when the full power of these saddlepoint approximations are combined with the existing pow er of transform theory. This research is concerned with using saddlepoint approximations to analyze systems and for extracting practical answers about such systems. Statistical analyses that involve more than one variable often require that the data are analyzed using multivariate methods. In this setting testing the significance of various hypotheses is not easily accomplished since the computation of attained levels of significance is not exact and requires approximation. The proposed research offers special computer simulation methods that will lead to virtually exact computation of attained significance levels for the majority of multivariate tests.